Solar Eclipse Observations with a Dense Network of Single-frequency Global Navigation Satellite System (GNSS) Receivers

This award would use off-the-shelf cell phone technology just recently made available on the market to construct a single frequency GPS array of sensors that would be applied to study the ionospheric effects of the solar eclipse happening on 21 August 2017. This event would provide the opportunity to study the ionospheric response to a well-characterized modification of the solar influx. The path of total obscuration crosses the central continental United States and deployment of the networked instrumentation to Tennessee is planned for the proposed measurements. The proposed project would deploy a regional network of dual-frequency and single-frequency Global Navigation Satelite System (GNSS) receivers with the goal of monitoring total electron content (TEC), ionospheric drifts, and signal scintillation effects induced by the eclipse. The proposed project lays the foundation for the use of consumer smartphones to augment the current GNSS-TEC receiver network to produce a greatly enhanced space weather monitoring capability. The August eclipse provides an outstanding opportunity for a proof-of-concept data capture. The project will partially sponsor one full-time Ph.D. student with the eventual objective of making this his Ph.D. project, and this project will employ six undergraduates for the proposed observing campaign.

TEC estimation from single-frequency GNSS measurements requires resolving carrier-phase ambiguity problem and mitigating the higher uncertainty introduced by using code delay in the TEC estimation process. Clusters of such receivers, analyzed collaboratively with surrounding dual frequency receivers, will enable a value-added enhancement standard TEC maps. Moreover, the phase information from the single frequency receivers allows the tracking of irregularity drifts (through a correlation analysis), and also the tracking of incidents of signal scintillation. This data fusion approach will be evaluated experimentally in the proposed investigation.